International Research Fellow Awards: Properties of Reward-related Activity in Primate Striatum

9802538 Cromwell The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty-four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Howard Casey Cromwell to work with Dr. Wolfram Schulz at the Institute of Physiology of the University of Fribourg in Fribourg, Switzerland. Dr. Cromwell will be learning in vivo electrophysiology techniques in monkeys. This work focuses on the role of basal ganglia in the processing of rewards. Reward processing is an important aspect of goal-directed behavior. It incorporates sensory information with an individual's physiological state and associative learning history for the production of appropriate behavioral output. The host lab of Dr. Schultz is one of the few places doing these recordings from striatum in monkeys. It may be the only place that combines this technique with a research focus on emotional and motivational aspects of basal ganglia functioning. This collaboration with Dr. Schultz will allow Dr. Cromwell to set up similar recording in the United States. ***